Reactive Scattering Codes for MIMD Architecture Supercomputers

The research proposed here is aimed at enhancing significantly the range of chemical systems that can be studied by bringing together - in a single research team - the most advanced quantum theoretical and computational scattering methods with the most advanced numerical algorithms for solving the kinds of mathematical problems that are at the core of these scattering methods. The goal is to establish a working interface between recent advances in numerical algorithms and corresponding breakthroughs in high-performance computing whereby newly developed and efficient numerical methods are integrated with existing scattering codes with the resulting programs tailored to be executed with maximum efficiency on distributed memory MIMD- type supercomputers, such as a Hypercube. The plan is to develop sufficiently powerful approaches that we will be able to carry out benchmark studies on the role of long-lived complexes (i.e., quantum resonances) in chemical reactions involving a high density of state.